STTR Phase I: Reinforcement of Lightweight Material Castings with Dissimilar Metals

The Small Business Innovation Research (SBIR) Phase I project will utlize ultrasonic vibrations during pouring of molten metal around a reinforcement insert placed in a mold and during solidification of the composite casting. The proposed processing route will help develop a defect-free metallurgical bond between two dissimilar metals.

The proposed technology can be applied to reinforcing lightweight castings including aluminum and magnesium; thereby replacing iron and steel components for automotive, aviation, and defense applications. The use of this technology, therefore, has the potential to contribute to significant energy savings, cost savings, and emission control.